U.S.-Iceland Cooperative Research: Study of Hydrogeologic Systems

0002162
Kadko
This award allows David Kadko of the University of Miami to visit Iceland to make preliminary investigations into the crustal residence times of fluids circulating through the geothermal systems there. The objectives of the investigations are to understand the hydrogeologic sampling sites and facilities available, obtain documents and maps available only in Iceland, and work out the unique contributions to be provided by each side. The overall results of the research will make it possible to study the ocean ridge system in entirely new ways, test sampling and analysis methods, and provide for an exchange of information and analytical techniques between experts in Iceland and the U.S.